Seattle Innovation Symposium

The 2006 University of Washington Seattle Innovation Symposium is the second in a series that was launched to build and maintain a vibrant network of researchers focused on advancing the body of knowledge on sustainable innovation and to create materials, such as case students, educational TV programs and published papers to share research with both the academic and business communities. The Symposium builds on the earlier initiative by continuing to engage previous participants and expanding to new researchers. The meeting employs a proven methodology, moving from small teamwork to larger teams and finally, into a plenary discussion. The expanded network of participants will consider original written and video-based case studies of innovation at a number of levels of complexity. Newly developed video case studies will consider not only individual expert innovators but also innovative teams in manufacturing and complex project enterprise innovation at the level of new aircraft. The results will engage young researchers and provide a variety of platforms to make results accessible.